U.S.-Iceland Workshop: Simulations of Long Time Scale Dynamics: Molecular and Continuum Descriptions; Reykjavik, Iceland, June 26-30, 2000

The Division of International Programs and the Division of Chemistry support Hannes Jonsson for a workshop on "Simulations of Long Time Scale Dynamics: Molecular and Continuum Descriptions" at the University of Reykjavik in Iceland. The focus of the workshop is on new developments in simulations of atomic systems over long time scales and the coupling of atomistic simulations with continuum descriptions. The workshop will bring together researchers who are approaching this problem from different perspectives with different tools and to highlight the strengths and weaknesses of the various approaches.

Dynamical simulations such as those covered in this workshop have led to insight and understanding in many diverse areas such as materials design, drug discovery, and protein structure. Current simulations are limited to extremely short time scales, about a nanosecond or less. It is important to find ways to carry out molecular-level simulations on the much longer time scales of interest for applications in chemistry and materials science.